The Synthesizer Generator

The Synthesizer Generator is a well-known and successful tool for creating language-based environments from formal specifications. Over 250 research sites worldwide have licensed the Generator, where its broad applicability is demonstrated by the diverse systems developed with it: programming and specification language editors, theorem proving environments, program verification environments, graphical editors, and the like. Recent advances in incremental computation make interactive environments practical even for large objects. Implementing these ideas will make improved performance available to many users of the Generator. Offer improvements include reduced time of editor generation, improved facilities for integration of existing editors with other tools, and expanded architecture nd windowing platforms on which the Generator runs. The results of this work will be a Synthesizer Generator that is available to a wider community of researchers and an expanded number of applications.